CT-ISG: Traffic Analysis: Attacks, Defenses, and Fundamental Limits

This project concerns traffic analysis--the practice of learning sensitive
information from communication patterns, rather than their contents. As
encryption of data becomes more prevalent, a detailed study of traffic
analysis is necessary to understand the threats to privacy that patterns
of communication pose, and to design effective countermeasures. Traffic
analysis is also important for intrusion detection, to detect attacks and
abnormalities that are embedded in encrypted traffic.

The project will focus on two types of traffic analysis: flow linking,
where packet timings are used to discover causal relationships between
network streams, and semantic information extraction, where information
about the flow contents is leaked through packet sizes and timings. In
both cases, the goal of the project is to use information, detection, and
queuing theory to discover the fundamental limits of traffic analysis and
to design optimal defenses.